Astrobiology

9730728 Barstow This is an integrated high school curriculum called "Astrobiology - The Search for Life On Other Worlds" that is developed by TERC, Inc. in collaboration with NASA. The course explores such topics as how planets form, what physical and biochemical conditions are required for the origin of life, how the evolutionary tree for terrestrial organisms is constructed , what evidence exists for the possibility of life on Mars and Europa, and how space missions gather additional evidence and search for extraterrestrial intelligence. The course covers basic concepts traditionally taught in biology, chemistry, geology and physics courses and thus is an integrated science course for high school students. The curricular materials are delivered in a printed Teacher's Guide, a printed Student Research Manual, a CD-ROM with images and data, and a website.